Dry Plating Apparatus and Process Development

Electroplating of fasteners generates large amounts of solid and liquid waste. A unique dry plating method has been developed to address this concern. This method eliminates liquid chemicals and minimizes solid waste. A process model has been successfully developed that predicts the cumulative effect of independent process variables on the deposition rate and the grain size. The data generated has indicated that the dry plating is a promising and safe alternative to electrochemical plating. A cadmium dry plating apparatus suitable for plating fasteners will be developed and the environmental and occupational safety standards of this process will be investigated. The dry plating process will be developed and modeled to study the quality of the coatings which are needed in the fastener industry. If this quality can be obtained in an environmentally safe manner, the dry plating has a substantial potential for plating large quantities of fasteners.